Intercampus Workshop Program: Lie groups, Lie algebras, and their representations

The intent of this proposal is to promote the continuation and strengthening of the regional workshop series
`Lie groups, Lie algebras, and their representations'. Funds
will be used for travel support of graduate students and some unfunded post-doctoral students to
meet, confer and collaborate with established experts, and to participate in quarterly
workshops in Lie theory held at various locations in the Western US.